High Performance Network Connections for Science and Engineering Research - HPNC: High Performance Network Connections at Clark Atlanta University

The proposal plans to connect CAU to the Abilene Network via SoX in support of the following research and education:
high-throughput computing,
video object coding and tracking,
computational analysis of protein structure and folding
IP multicast for Access grid technology

Clark-Atlanta will also connect the Morehouse School of Medicine to Abilene and advanced network services via this award.